Sulfur Speciation and Cycling in Black Sea Waters

The principal investigator of this research project has recently developed polarographic techniques to measure inorganic and organic sulfur species in marine porewaters. Included among these species are thiosulfate, sulfite, tetrathionate, bisulfide and polysulfide as S(-2), polysulfide as S(O), thiols and organic disulfides. His use of these methods for salt marsh porewaters has shown that there is cycling between organic and inorganic sulfur species via pyrite formation and its consequent oxidation. He expects similar processes may be occurring at the oxic/anoxic interface in the Black Sea. He proposes 1) to measure the above sulfur species and 2) to develop an understanding of their formation, cycling, and interactions with metals in Black Sea waters and porewaters. In order to accomplish this goal, his research efforts are being coordinated with 1) Drs. Landing and Jacobs who are proposing to study trace metal biogeochemistry and speciation, and 2) Drs. Jannasch and Mopper who are proposing to study microbiological processes and carbonyl formation respectively in the water column of the Black Sea.